Support for U.S. High Energy Physicists to Attend XXXVIIth Rencontres de Moriond Conferences; Les Arcs, Savoie, France

The proposal requests funding for partial support for U.S. scientists to attend two sequential high energy physics conferences in Les Arcs, Savoie, France. The first conference addresses Electroweak Interactions and Unified Theories. The subjects are CP violation, heavy flavor physics, neutrino physics, tests of the Standard Model, searches for new particles and theories beyond the Standard Model.

The second conference concerns Quantum Chromodynamics (QCD) and High Energy Hadronic Interactions. The topics to be covered include heavy flavor physics, structure functions, diffractive phenomena, low-x physics and saturation, tests of perturbative QCD, heavy ion collisions, the search for new phenomena and physics at future accelerators.